Nonadiabatic Effects in Photodissociation of Small Molecules

The Theoretical and Computational Chemistry Program in the Chemistry Division has supported a comprehensive investigation of curve-crossing events in chemical reactions being carried out by Professor Guo at the University of Toledo. Professor Guo is conducting a study of non-adiabatic transition dynamics in the photodissociation of small molecules, including new three-dimensional quantum mechanical calculations of the photodissociation dynamics of alkyl iodides in the gas phase. Professor Guo's new approach treats the dissociation degree of freedom by a quantum wavepacket method while characterizing environment motions by classical trajectories. The quantum and classical subsystems are coupled via the Ehrenfest scheme so that the wavepacket and the trajectory can be propagated self-consistently. %%% Most chemical reactions can be adequately understood as involving reactant and product molecules in their ground electronic states. However, there are many important reactions, including most processes that are initiated by ultraviolet radiation, for which the reaction process involves interaction between the ground and excited electronic states. A new theoretical method is being tested that should permit prediction of the probability of such processes and thereby contribute to the understanding of the mechanisms of processes initiated by light.